Geometry and Physics

Abstract

Award: DMS-0072675
Principal Investigator: Daniel S. Freed

The geometry group at the University of Texas proposes to carry
out a variety of research projects, most of which are related to
physics. Dan Freed's current research focuses on questions in
geometry and topology arising from string theory. These include
the construction of determinant line bundles on manifolds with
boundary and the understanding of anomalies of actions which
arise in quantizing lagrangian field theories. Karen Uhlenbeck's
current research involves the geometric theory of integrable
systems, as well as a non-linear Schroedinger equation arising in
macroscopic theories of a ferro-magnetic continuum. These two
researchers are starting a project aimed at understanding the
appearance of integrable systems in conformal field theories.
Bob Williams is applying his expertise on attractors to the
construction of tiling spaces. Constantin Teleman is pursuing
several projects in the cohomology of infinite dimensional Lie
Algebras. He and his coworkers are making progress on the
MacDonald conjectures, and are also giving geometric
interpretations in terms of the Hodge cohomology of flag
varieties of loop groups. He is also interested in homotopy
equivalences between holomorphic and continuous mapping
spaces. Postdoctoral members of the group are Nurit Krausz, who
is working on direct computations for quantum field theory in
Minkowski space, and Adrian Vajiac who uses equivariant
localization techniques to study topological quantum field
theories.

At this point in time, geometry is a rapidly developing area of
mathematics. While research in geometry, like most of pure
mathematics, consists of the construction and development of
abstract concepts, the origins and ultimate applications for
these constructions are invariably examples and applications in
more applied fields. The influence of theoretical physics on
geometry is strong. For example, large numbers of geometers are
currently working on questions related to quantum groups, mirror
symmetry and quantum cohomology. Our group attempts not to work
on problems which have already been identified by mathematicians
as central, but in contrast we look at current ideas in physics
of all sorts and then find, clarify, and work on the
mathematically interesting questions more directly. Dan Freed's
work on string theory connects the physics ideas of quantization
with the mathematical subject of algebraic topology. His joint
project with Karen Uhlenbeck on the appearance of integrable
systems in certain quantum field theories requires an
understanding of field theory, integrable systems, and the very
important and basic ideas of symmetry. Constantin Teleman's work
deeply involves fundamental ideas of symmetry, as well as delving
into the question of how closely very messy functions can be
approximated qualitatively by polynomial-like objects. Some of
the geometric ideas come from other branches of physics, such as
the ferro-magnetic equations studied by Uhlenbeck. The tiling
spaces of William's come from beautiful examples such as those
constructed by Roger Penrose. Our efforts bring new ideas and
techniques into mathematics, rather than concentrating on
projects which are already popular.